I Can Zoo Science

The Philadelphia Zoo proposes a design and evaluate a series of carry-along kits for families to use during Zoo visits and at home afterwards. The materials and devices in the kits will help all members of the family strengthen their science process skills and upgrade their knowledge. Evaluation will be a key part of the design process as materials are mocked up and tested, with results feeding directly back into the design process. A design team will integrate scientists, educators, cognitive development researchers and designers who will work collaboratively to develop the kits, drawing on the resources of a diverse advisory committee.